U.S.-Polish-Czech Workshop on Modeling Interactions in Biomolecules

This U.S.-Polish-Czech workshop on modeling interactions in biomolecules will bring together students and researchers from the United States, the Czech Republic and Poland to discuss current methods of computational chemistry and their application to biological systems. The co-organizers of the workshop are Dr. Jerzy Leszczynski from Jackson State University, Jaroslaw Burda from Charles University in the Czech Republic and Waclaw Sokalski from Wroclaw University of Technology in Poland.

The proposed meeting will focus on a rapidly developing interdisciplinary field: molecular modeling which is the linking of computational chemistry, molecular biology, biophysics, solid state physics, and molecular graphics. The main objective of the meeting is to establish an interdisciplinary forum where leading experts representing recently emerging methodologies will meet with scientists interested in their applications in biological and material sciences. A large group of minority students and post-docs will be invited to makes presentations at this workshop and the HBCU representatives will benefit from interactions with foreign colleagues, leading to new scientific collaborations

This is a timely meeting on a rapidly progressing field of research in computational chemistry that also contains an aspect of student training, as this is not an area traditionally taught in the graduate school curriculum. This project also fulfills the program objectives of bringing together leading experts in the U.S. and Central/Eastern Europe to combine complementary efforts and capabilities in areas of strong mutual interest and competence on the basis of equality, reciprocity, and mutuality of benefit.